CPS-FR: AI-Enabled CPS: Perception Contracts, Generative Design Domains, and Codesign of Certificates

Artificial intelligence is reshaping how cyber-physical systems sense and act in the world, from self-driving cars to drones that can land themselves and fly through cluttered spaces, promising enormous benefits for transportation, agriculture, public safety, and national defense. This project will help determine, under what conditions such an AI-enabled autonomous system can be trusted to operate safely. The work brings together formal verification, control theory, and modern generative artificial intelligence to make these operating domains explicit, computable, and useful for design rather than buried as informal assumptions. Successful outcomes will give engineers clearer design boundaries, give certification authorities a rigorous basis for approval, and give the public a more trustworthy generation of autonomous vehicles, aircraft, and robots. The project also contributes to the national interest through new educational modules at the undergraduate and graduate levels, a vision-based autonomous racing competition that releases benchmarks to the research community, mentoring of student teams in international drone racing, and a summer camp that introduces high school students to autonomy and robotics through hands-on experiences with real vehicles.

The project develops a unified framework centered on perception contracts: formal, machine-checkable specifications that relate what an AI perception module delivers to what the surrounding control system requires for correctness. A perception contract over-approximates the behavior of a perception pipeline (such as a deep neural network estimating an aircraft's pose from camera images) with a tractable mathematical object that downstream verification tools can reason about. The operating design domain is then defined precisely as the set of environmental conditions under which the contract holds and system-level correctness can be certified. To achieve this goal, the project develops refinement algorithms that synthesize perception contracts and corresponding operating design domains for multi-modal perception pipelines that fuse cameras with inertial sensors. It extends contract-based reasoning beyond simple invariance properties to history-dependent correctness and develops the theory and algorithms for runtime monitoring of contracts. The project also explores using generative AI techniques to discover operating design domains that capture the rich variation present in real-world scenes. Finally, perception contracts and generative operating design domains are integrated into a new control design approach based on an extension of robust control barrier functions. Evaluation will be carried out on two grand challenge domains for certified autonomy: agile flying and automated driving using both photorealistic simulations and physical devices.